State/University Cooperative Research Center for Electronic Imaging: Imaging in the Information Age

Electronic imaging is an emerging technology area that will promote acquisition, transmission, storage, and display of information through visual means. Advances in this technological area will lead to important new systems for factory automation using robots, medical diagnostics, office automation, and defense. The State/Industry/University Cooperative Research Center for Electronic Imaging at the University of Rochester in collaboration with the Rochester Institute of Technology will address the following major research topics: (1) digital image processing, (2) image sequence processing, (3) digital compression, and (4) color reproduction in different media. The initial industrial partnership includes seven companies. The technology transfer will occur through collaborative research with company personnel, and industrial residentship in the Center. The Center will participate in the new program of undergraduate education under the Rochester Education Demands Involvement Initiative by implementing special projects, and developing new courses that relate to electronic imaging.